U.S.-Korea Conference: Satellite Conference to 2002 International Congress of Mathematicians (August 2002)

0139090
Steven G. Krantz
Washington University

This project is to have a U.S.- Korea satellite conference to the 2002 International Congress of Mathmaticians to be held in Beijing, China. The conference will be held in Kyung-Ju, Korea jointly funded by KOSEF in Korea and NSF in U.S. The subject of the conference are complex variables and complex geometry.